MRI: Acquisition of a High-Performance Parallel Computer to Support an Interdisciplinary Computational Science Center for Physical Science, Mathematics and Engineering

EIA-9977540
Weinberg, Martin D.
Auerbach, Scott M.
University of Massachusetts Amherst

MRI: Acquisition of a High-Performance Parallel Computer to Support an Interdisciplinary Computational Science Center for Physical Science, Mathematics and Engineering

This is a proposal to construct a high-performance computing platform to enhance the state of scientific computing at the University of Massachusetts-Amherst. The computing platform will consist of 48 Pentium II processors. The purpose of this parallel computing platform is to: (i) facilitate the research of faculty members whose work involves computational simulation or massive data processing, (ii) encourage collaboration among faculty located in diverse departments and schools, (iii) provide a medium where new compiler technology and parallel processing research in the Computer Science Department can be tested and incorporated into state-of-the-art scientific applications, (iv) provide a testbed for new parallel algorithms and approaches and (v) allow graduate students quick access to parallel processing capabilities for use in classes or directly in research.